ITR/SY Proposal: Image-Based Information Access and Organization

Current interfaces employ textual representations, and restrict people from exploiting their spatial abilities to assist in dealing with the increasingly expanding information sphere they confront. This project is motivated by the view that spatial and temporal organization of images can serve as effective interface components and may offer multiple advantages over textual lists of titles and URLs. It explores several image-based applications: (1) Visual bookmarks and visual site indexes, that replace textual URLs with images from the pages; (2) Visual browsing summaries and activity histories, that use images as a way of accessing previous web-based activities; (3) Image augmented query results, that add images to the results of web searches to help disambiguate them.